Geometry, Syzygies and Combinatorics of Algebraic Varieties

The principal investigator and his collaborators will address
several groups of problems in areas of algebraic geometry,
combinatorics, and computational algebraic geometry, with emphasis
on syzygies and their relevance in geometry and combinatorics.
Algebraic geometry at large deals with geometric objects
described by systems of polynomial equations. The area is central to
mathematics since such geometric objects include certain
fundamental examples in the most diverse disciplines
of mathematics.Its importance in the applications
of mathematics comes from the fact that such algebro-geometric
objects provide models often used when representing fundamental
geometric forms via equations and also on a computer.
The investigator will study the geometry and algebra
of polynomial ideals in close relation to their complexity,
will investigate several combinatorial aspects related to
his proposed complexity bounds, and will extend the use of
exterior algebra methods to projective geometry.
The principal investigator's activity will also include the
development of various fundamental algorithms in computational
algebraic geometry and their implementation in the Macaulay2
package written by Grayson and Stillman.